REU Site: Summer Research Projects in Biosystems Modeling and Analysis

0244045 Nair

This award provides funding for a three-year Research Experience for Undergraduates (REU) Site at the University of Missouri Colombia for twelve students per year during ten weeks in the summer to focus on research in the area of mathematical modeling and analysis in the biosciences. The REU site is designed as a ten-week summer experience and will involve a multidisciplinary team of faculty from the University of Missouri Colombia College of Engineering, the Institute of Biophysics in the College of Arts & Sciences, the Department of Physiology in the School of Medicine, and the Department of Veterinary Pathobiology in the College of Veterinary Medicine. With rapid advances in biotechnology, the role of engineering and quantitative approaches has grown tremendously in several areas of the biosciences. Quantitative modeling and system theory represent well-defined areas that combine the diverse disciplines of engineering and the biosciences. Even with significant technological advances in several areas of the life sciences, modeling and system curricula are only beginning to be formalized. At this REU Site, students will have a unique opportunity to work with a strong interdisciplinary team of well-established faculty researchers to learn how to explore biosystems through research using quantitative modeling and system theory analysis.